CAREER: An Information-Theoretic Approach to Computational Learning with Applications

Information theory is the science of quantifying, encoding, and
extracting information. The research proposed in this career
development plan consists of work designed to strengthen the
theoretical foundations and empirical applicability of computational
learning through the development of a rigorous, information-theoretic
framework for investigating this discipline. Specifically, an
information-theoretic framework, based on communication theory, is
proposed for investigating the probably approximately correct (PAC)
model of machine learning. This framework is shown to be robust and
extensible; new learning algorithms, general measures of performance,
and analysis techniques are all proposed and demonstrated.

In addition to providing a means for strengthening the theoretical
foundations of computational learning, this framework also provides a
mechanism for developing and rigorously analyzing new learning
algorithms. New algorithms for hypothesis boosting, document
classification, document filtering, and meta-search are all proposed.
The proposed applications work has both theoretical and experimental
components: all new algorithms are to be analyzed, implemented and
tested using benchmark data.

Teaching and education are an integral part of this career development
plan. Both graduate and undergraduate students are introduced to
topical research, both theoretical and applied, through the projects
proposed. New courses on learning and information retrieval,
accessible to both graduate and undergraduate students, are also
proposed.